National Confernce on Undergraduate Research

The National Conference on Undergraduate Research provides increased national awareness of the importance of research experiences in the education of undergraduate students. The first conference, held in April, 1987, demonstrated, through the attendance of more than 450 students, faculty and administrators from over a hundred different colleges and universities located in 30 states together with the enthusiasm of the participants, the need for this conference as an annual event. With funding provided by the National Science Foundation, future conferences will attract additional participants, especially underrepresented groups, who have the ability to advance the development of research with undergraduate students in their institutional environment and nationally.